Microzooplankton Dynamics in the Arctic Ocean

This proposal is part of an integrated scientific investigation to study the properties of the Arctic ocean, atmosphere, and sea-ice on a transect between Murmansk, USSR and Nome, Alaska. There are few published measurements of biomass or production from most shelf and basin regions of the Arctic Ocean. This project is one of four that will evaluate biological processes in the Arctic Ocean during the Trans-Arctic cruise of the SOVETSKIY SOYUZ. It will investigate role of microzooplankton in the Arctic Ocean. Specific studies will determine the abundance and distributions of microheterotrophs in the Arctic Basin and several marginal seas; measure grazing rates of these organisms and; contribute to a collaborative program that will evaluate the flux of carbon in the Arctic Ocean.